Symposium of New Trends in Nonlinear Dynamics and Control, and their Applications

0206627
Xiao

This grant will support a two-day symposium on "New Trends in
Nonlinear Dynamics and Control, and Their Applications," to be
held at the Naval Postgraduate School in Monterey, California
from September 19-20, 2002. The conference will focus on new
and innovative developments in nonlinear dynamics and its
applications, such as nonlinear observer design, cooperative
control, flow control, and bifurcation control. The symposium will
include several invited 50-minute talks and a series of shorter
contributed presentations of approximately 20 minutes each. The
organizers plan to publish proceedings of this meeting in book
form.

The rapid pace of change in technology constantly presents new
challenges and new opportunities to researchers in systems and
control, especially those in nonlinear control. Advances in
materials science, active actuators and sensors, and fluid
mechanics challenge the community to develop controllers for
complex nonlinear systems of both finite and infinite dimensions.
Models of nonlinear systems that are especially interesting to
researchers in nonlinear control include fluid dynamics, flow
control, smart materials, and chemical reactions. The nonlinearity
of these complex systems leads not just to instability but also to
periodic solutions, bifurcations, and chaos. Recent research shows
promise for controlling such systems to achieve stability or
instability. Cooperative control is another research topic of
nonlinear systems that is attracting increasing attention. Recent
advances in computing and communications make it possible to
operate a large number of autonomous or semi-autonomous agents
simultaneously in a cooperative manner. Such systems involve
nonlinearities that are far more complicated than those exhibited
by a single system. Problems involving cooperative control of
multiple nonlinear systems are found to have numerous
applications. Several of the presentations and discussions during
the symposium will address issues related to cooperative control
and its applications (e.g., control of a satellite constellation,
multiple munitions). The symposium will provide an opportunity
for both well-established and young researchers to exchange ideas
on new developments and directions for future research. These
new challenges require a review of major developments in
nonlinear control theory from the past and to discuss new research
trends to meet the ever-increasing needs of industrial applications.
Major topics to be addressed in the symposium include new
developments in the theory of nonlinear systems and control such
as nonlinear observers, bifurcations and control, and turbulence
and control.